Fabrication Characterication and Mathematical Modeling Thermoelastic Thin Film Structures with Oriented Semicoherent Precipitates

9302270 Grummon This project is a theoretical and experimental study of thermoelastically active thin film structures. The theoretical effect focuses on predictive strategies capturing deformation- and stress-states in variant distributions generated by the experimental protocols involving nickel-titanium thin films fabricated to contain semicoherent precipitates. Interfacial strain-fields associated with the precipitates will enable cyclically reversible shape-strains, available to do useful